Computer Studies of Time Resolved Photophysical Processes inProteins

The research described in this proposal is focused on theoretical and computational studies of photophysical processes in proteins. These studies will include simulations of time resolved fluorescence spectra of chromophores in solution and in proteins. Two kinds of chromophoric systems have been chosen for study: (1) naturally occurring indole/tryptophanyl chromophores in water and in protein (e.g. T4 phase lysozyme), and (2) synthetic fluorescent chromophores attached to protein (e.g. apomyoglobin). The proposed project involves a close collaboration between laboratories with complementary expertise in respectively, molecular electronic structure theory and computer simulations of proteins and liquids, and contains the following objectives: (1) to develop appropriate potential energy functions for selected chromophores to be used in simulations of optical excitation processes in solution and in protein; (2) to characterize the dielectric response of a protein to a sudden charge redistribution; (3) to use simulations to distinguish between alternative molecular relaxation mechanisms which may account for the picosecond time evolution of the red shift in fluorescence spectra of tryptophan residues in proteins; (4) to explore the sensitivity of the "medium" (water, organic solvent, protein) response to the optical excitation of model chromophores as a function of basic molecular properties of the chromophore.